A Generic, Hands-On Control System Laboratory

A generic, "hands-on" control laboratory has been developed, built, and tested. The laboratory uses control system hardware to investigate undergraduate level topics in control theory. A prototype system is being integrated into junior and senior level control theory programs as laboratory courses. Resources are made available to fully equip the hands-on-control laboratory. The lab equipment includes both analog and digital controllers. The digital controller is an IBM AT or Mac II, along with A/D and D/A boards. The purpose of the computer is to provide an easy medium to implement a set of control instructions or algorithms into the system at a high programming level. The computer serves to acquire data, and graphically present the results. Three experimental setups use an analog servo motor position controller to demonstrate modeling techniques, sampling and observer design. The generic laboratory set-up is designed to allow the investigation of a wide variety of processes such as motor control, a three-degrees-of-freedom robotic arm manipulation, an inverted pendulum, and the control of temperature and tank water level in a solar energy system.